Mathematical Sciences: Nonlinear Dyamics in Combustion

9301635 Bayliss The investigator numerically studies the development of complex spatial and temporal patterns in combustion. These patterns are associated with narrow reaction zones in which rapid changes in the dependent variables occur across narrow spatial regions. The solutions are obtained using an adaptive pseudo-spectral method in which coordinate transformations are introduced during the course of the computation to better resolve the reaction zone and the associated patterns. He considers the formation of modulated traveling waves (MTWs) in cellular flames, transitions between different types of MTWs and transitions between MTWs and chaotic patterns, one-step and multiple reaction mechanisms, the role of thermal expansion of the gas on the formation and evolution of the patterns, and the formation of spatial and temporal patterns in condensed phase gasless combustion. He also further develops the numerical method to account for problems where there are multiple regions of rapid variation. It has been observed that many combustible mixtures do not necessarily burn in a unifrom pattern. Rather, ripples and other patterns can occur along the flame. The formation of such patterns is believed to be an important stage in the transition from laminar combustion (in which the burning occurs in a regular, predictable manner) to turbulent combustion (in which the burning occurs in an erratic, seemingly random fashion). An understanding of the transition process is an essential prerequisite to control of the transition process to lead to more efficient burning. In many instances these patterns can not be predicted by analytic means and experiments are much less advanced than for nonreacting flows. In the project, the investigator studies the problem of the formation of patterns and the transition to turbulence in combustion. The project uses supercomputer computations to study the formation of these patterns and the physical mechanisms underly ing them. The study relates both to gaseous combustion, i.e., the burning of fossil fuels, and gasless combustion, in which a solid burns directly. The last process is employed in the synthesis of materials, in particular of advanced ceramics and metallic alloys.